A Needs Assesment and Proposal Development Conference for anIllinois Teacher-Leader in, Mathematics, Science and Technology Education Conference

This project, sponsored by the Fermi National Acceleration Laboratory, will institute a conference for outstanding Illinois educators to carry out a state needs assessment and a goals development study for a teacher enhancement program for the State of Illinois. The conference membership consists of 60 outstanding teachers, former NSF Principal Investigators from the state of Illinois and five people representing the Illinois State Board of Education. The expected outcome of the conference is a suggested outline of a Teacher Enhancement Proposal which will be prepared by the conference task force. The NSF funds are being matched by funds from the Illinois State Board of Education in an amount equivalent to 34% of the NSF grant.